Chapman Conference on Application of GIS, Remote Sensing, Geostatistics, and Solute Transport Modeling to the Assessment of Nonpoint Source Pollutants in the Vadose Zone

9728624 Spilhaus This meeting will explore current multidisciplinary methodologies for assessing the impact of non-point source (NPS) pollutants upon soil and groundwater resources. The meeting will encourage interaction between the disciplines of spatial statistics/geostatistics, remote sensing, geographic information systems (GIS) and solute transport modeling to enhance the development of techniques for the measurement, assessment, and modeling of NPS pollutants in the Vaduz zone and in subsurface waters.